NAS: 1996 Forum of the Solid State Sciences Committee, Washington, DC; February, 1996

9531156 Morgan This award provides partial support for the 1996 Solid State Sciences Forum, entitled: "Driving Innovation Through Materials Research". The Forum program will include discussions of the current status of condensed matter science, opportunities for its future impact on technology, and a long-range view of field's future role. %%% This award provides partial support for the 1996 Solid State Sciences Forum, entitled: "Driving Innovation Through Materials Research". The Forum program will include discussions of the current status of condensed matter science, opportunities for its future impact on technology, and a long-range view of field's future role. ***